The Institute for Theoretical Atomic, Molecular and Optical Physics

This award provides support for the Institute for Theoretical Atomic and Molecular Physics (ITAMP) at the Harvard/Smithsonian. The funds are used for a postdoctoral program, a long and short term visitor program and for wokshops. The postdoctoral students are provided a unique atmosphere where they can work freely with the Harvard faculty or staff members of the Smithsonian. The visitor program provides a focus for bringing together geographically dispersed members of the AMO community to work together or separately on problems of current interest in atomic, molecular and optical theory. The workshops, which are attended on a regular basis by senior and junior scientists, students, and postdoctorals are devoted to current "hot" topics in the field or are designed to focus the community on subjects of broad interest.